Design and Analysis of Enhanced Receivers for Wireless Personal Communications Networks

Although there have been enormous advances in communications over the past several decades, the vast majority of personal communications today is still done through wired systems. However, with the coming of age of personal communications networks (PCN) and digital cellular communication, more and more communications will be wireless, or untethered in the future. A major consideration in PCN is the multiple accessing technique, and it appears that spread spectrum code division multiple access (CDMA) is the best choice. This research deals with the CDMA environment, and a modified design of the standard receiver that results in enhanced system performance is presented. The redesign is based around the signal processing technique of transform domain processing and will result in a receiver which more closely approximates an optimal detector than does the conventional correlation receiver. The research will involve analysis an numerical simulation.